Cognitive Science: An Integrated Approach to Spatial Cognition

9355034 Palmer Twenty members of Berkeley's Institute of Cognitive Studies propose an integrated graduate research training program in the interdisciplinary field of cognitive science with a focus on spatial cognition. We request funds to support a five-year training program for five graduate students to consist of both coursework and research on the theme of spatial cognition, including spatial perception, language, and reasoning. Students will we required to take a set of five basic lecture courses and a series of research seminars to ensure adequate background knowledge in computer science, linguistics, psychology, and biology on topics integral to research on spatial cognition. Research training will occur as the trainees engage in research on topics within a number of well-established projects at Berkeley on the theme of spatial cognition, including: (l) cross-linguistic studies of lexical semantics, (2) the nature of spatical and temporal metaphors, (3)the acquisition of spatial language by children in different cultures, (4) the "psychophysics" of spatial terms, (5) the biological basis of spatial cognition, (6) the representation of spatial knowledge, (7) computational models for understanding, learning, and producing spatial descriptions, and (8) biological aspects of spatial cognition in animals and humans. Both faculty and trainees will take part in a series of research seminars focusing on the results of these research projects. ***